Interdisciplinary Studies of H3+: Reactions with e and H2 in the Laboratory and the Interstellar Medium

This project represents an interdisciplinary program of research at the interface between chemistry, physics, and astronomy centered on the simplest polyatomic molecule, H3+. The laboratory component of the research involves the study of the dissociative recombination of H3+ with electrons and the proton-swapping "reaction, which represent the simplest cases of dissociative recombination and chemical reaction for polyatomic molecules. The observational component entails the spectroscopic measurement and analysis of H3+ in a sample of diffuse interstellar clouds, which will permit the determination of the cosmic-ray ionization rate. The experimental results will also be used to model the interconversion of the ortho and para forms of H2 and H3+ in the dense interstellar medium. This research, and associated activities, can be expected to have a broad impact in terms of enhancing interdisciplinary research, training undergraduate and graduate students, and integrating teaching and research.